Quantum Nonlocality in Many-Particle Entangled States (Physics)

This work will further study the states of N widely separated spin-1/2 particles to determine how strongly they can violate generalized Bell inequalities and how arguments purporting to demonstrate non-locality can be clarified by using these states.